Measurements of Rates of tRNA Selection in Vivo

The proposed study is intended to further understanding of the importance of translational rate to gene expression. Synonomous codons are used with greatly unequal frequencies. The assay described herein has been used to measure translational rates for 29 sense codons. Translational rates cover a 25.fold range and rate correlates with codon frequency. Differences in rate are caused by differences both of tRNA concentrations and rate constants for tRNA selection. Other work shows that activities of individual codons can be modified by the surrounding message nucleotides (context). A lacZ allele is engineered such that expression depends on the rate of translation of a single codon. Site.directed mutagenesis will be used to systematically vary the critical codon so that the relative rates of tRNA selection canbe measured for every codon at the same message site in living E.coli. Further, the message context of selected codons will be systematically altered to determine the effects of message context on translational rate. It explain how biased codon usage and message context affect translational efficiency. The process by which the information encoded in a gene is decoded into a finished protein product involves a number of steps, among them transcription, in which a messenger RNA is made from the gene, and translation, in which the sequence of bases in the messenger RNA is converted, in accordance with rules of the genetic code,into a sequence of amino acids, which is then assembled into protein. For life to proceed, it is obviously essential that the rate of error (i.e., choice of an incorrect base or amino acid) be kept extremely low. The mechanisms by which the error rates are kept as low as they are only partly understood. The work proposed herein will elucidate some of these mechanisms.